Application of Intelligent Signal Processing to Elastic Waves in Solids

The aim of this research program is to explore the use of an intelligent system to process elastic wave ultrasonic signals to obtain solutions to a large group of source and materials characterization problems. Specifically to be studies will be a novel neural-like intelligent processor for analyzing ultrasonic signals in solids.